Mathematical Sciences: Research in Algebraic Topology

This project addresses several problems in algebraic topology. Peterson's first problem involves the cohomology of the classifying space of elementary abelian 2-groups, and his second problem involves the loop space of the group SU(n). Kan plans to apply the obstruction theory for realizing a diagram in the homotopy category by means of a diagram of spaces to the problem of realizing an unstable algebra over the Steenrod algebra as the cohomology of an actual space. Another of Kan's projects is an investigation of the cohomological approach to unstable Adams spectral sequences, and a third problem concerns the category of simplicial spaces.